Minority Institutions Infrastructure: Furthering the Goal of Increasing the Number of Minority Undergraduate and Graduate Students in CISE Disciplines

9522079 Giguette This award provides support for a comprehensive program that will make substantial infrastructure changes to the computer science and related disciplines at Xavier University. The goals of the program are 1) to increase the number of majors in CISE disciplines by 50%, 2) to increase the number of CISE majors who go to graduate school by 100%, and 3) to expand the research activities of all of the CISE students and faculty. These goals will be addressed by revising and significantly expanding the current summer outreach programs, expanding the undergraduate research and mentoring programs, and establishing new teaching and research laboratories. This project builds on the very successful similar efforts in the health sciences at Xavier. It is anticipated that comparable results can be achieved in the computing disciplines as well and that the model developed in this project has the potential to become a national model for minority student success at other similar institutions. ***